Introductory Anthropology for Historically Black Colleges

This project develops an introductory-level undergraduate curriculum in anthropology for Historically Black Colleges and Universities (HBCUs). The curriculum begins with a two semester sequence in cultural anthropology and research methodology followed by a summer ethnographic field school. The second year includes a sequence of one semester of language and culture, a second semester of field research, and a summer internship. A major focus of this project is the development of multimedia and interactive modules which will enhance students' understanding of basic anthropology, the research process, and cultural and social perspectives. The proposed curriculum is also expected to increase the scientific and technical literacy of underrepresented minorities at other institutions.